Mathematical Sciences: Probability and Statistics

A series of topics in probability and statistics will be studied which are unified by the geometric techniques that are employed. Contact sets will be used to study questions of robustness in Bayesian estimation. The question of reconstructing a subset from finitely many central projections, knowing that it comes from a given population, will be examined. The results will be applied to problems in tomography. A further goal is a better understanding of the structure of finite dimensional moment spaces induced by the class of all measures on a given polyhedral region. Further aims are generalized confidence intervals subject to a preassigned smoothness condition and probability densities having given moments and possessing a maximal degree of smoothness. A new minimal entropy method will be studied to achieve a partition of data into relatively homogeneous blocks or clusters.